CSEDI: Development of a Cooperative Institute for Deep Earth Research

The proposed scope of work for the next 4 years is focused primarily on
better defining the role and organization of a future fully developed CIDER
Institute (Cooperative Institute for Deep Earth Research) (see
http://www.deep-earth.org/ for further details).

Following on the successful CIDER summer program held at the Kavli Institute of
Theoretical Physics in Santa Barbara, CA from July 13 to August 6, 2004,
the institute will hold three CIDER summer programs, in 2006, 2007
and 2008 respectively. Each program will last 3 weeks and comprise
overlapping "tutorial" and
"research workshop" parts. The tutorial part will involve 30 graduate students
and post-doc's, who will stay for the whole duration of the program, and 10
instructors, who may stay for 2 or 3 weeks. The research workshop part will
also involve about 15 more senior participants. Each summer program will be
organized around a specific interdisciplinary theme and will be held at or
close to an academic institution. The 2006 program will be held at the
Kavli Institute for Theoretical Physics (KITP) in Santa Barbara, CA, on the
theme: "Constraints on the fluxes of mass, heat and chemicals in the
mantle, with a
particular focus on the upper mantle and transition zone". Location and
themes for the subsequent two workshops will be determined in coordination
with the CIDER Steering Committee.